NRI: INT: COLLAB: Muscle Ultrasound Sensing for Intuitive Control of Robotic Leg Prostheses

The research objective of this project is to enable volitional control over lower-limb prostheses through the integration of sonomyographic sensing - the ultrasound imaging of amputated (i.e., residual) limb muscle morphology - to control the Utah Lightweight Leg. This powered prosthetic leg is comprised of powered ankle and knee modules, and is roughly half the weight of contemporary technologies. The project team will use sonomyographic sensors in combination with mechanical sensors to infer the user's intent in anticipation of ambulation mode or joint motion, for example locomotor transitions from walking over level ground to ramps or stairs. The team will then perform human subject experiments comparing the ability of participants with transfemoral amputation to ambulate with and without various sonomyographic control algorithms enabled. If successful, the project will have positive impact on national health and welfare by improving the lives of individuals with amputation in terms of their independence and ambulation abilities, and by mitigating undesirable secondary effects of amputation such as a fear of falling and long-term joint health. Additional broader impacts of the work include enhanced undergraduate and graduate research experiences for veterans and underrepresented minorities, as well as outreach activities to K-12 students.

Robotic leg prostheses can overcome the limitations of conventional passive prostheses by generating net-positive energy during the gait cycle and actively regulating joint motion. However, scientific barriers must be overcome for robotic leg prosthesis to safely and effectively operate in real-world settings. The goal of this project is to fill the knowledge gap regarding the integration of the user's volition in the control of lightweight robotic ankle and knee prostheses. The research team will measure muscle contractions of the user's residual limb using wearable ultrasound probes. Specific objectives of this project are: 1) to identify optimal design guidelines to integrate sonomyographic sensing into state-of-the-art powered knee-ankle prostheses; 2) to determine specific algorithms that best anticipate the user's intention to perform different ambulation modes in a timely, accurate, and reliable manner; and 3) to understand how to optimally combine information gathered from sonomyography and mechanical sensors to control a robotic leg prosthesis within specific ambulation modes. Algorithms will be implemented on a lightweight robotic ankle and knee prosthesis to evaluate the hypothesis that providing users with anticipatory volitional control will lead to enhanced performance in complex and uncertain environments, thereby fostering seamless integration of robotic prostheses with human users.